Doctoral Dissertation Research: Seasonality of Fertility in the Laguna de Sinamaica, Venezuela

Seasonal birth patterns have been observed in virtually all human
populations. While such patterns are known and well understood in many
animal species, they are difficult to analyze in humans, since biological
factors contributing to birth rates are confounded with cultural factors.
Taken as a whole, the conclusion of the many studies on birth seasonality
in humans is that while such seasonal variation is universal, the causes of
variation are not universal. Most of the research that has attempted to
explain observed seasonal patterns in specific populations has focused on
only a few possible causal factors. In many cases factors such as diet,
workload, and climate are shown to be correlated with fertility, but the
mechanisms linking them with fertility remain unexplained.
The proposed study will analyze seasonal birth patterns in an indigenous
American population (the Anu of northwestern Venezuela). It will describe
seasonal variation in proximate determinants of fertility, including
characteristics of ovarian cycles and fetal loss. These data will be used
in models of fecundability and fetal loss that together describe
seasonality of fertility. The study includes analysis of 1346 urine
samples that were collected twice weekly during the seasons of most and
fewest conceptions. The samples will be assayed to determine levels of
human chorionic gonadotropin (the hormone that indicates pregnancy) and of
urinary metabolites of the hormones estradiol and progesterone; the assay
data then will be used with interview data to determine proportion of
cycles ovulatory, length of cycles, rates of conception, rates of fetal
loss, and levels of progesterone, as an indicator of luteal sufficiency.
Previous investigations of seasonality of fertility have been based
largely on factors specific to the population being studied. The proposed
study uses a model of seasonality of fertility that can be applied to any
population. By combining existing models of fecundability and fetal loss,
the impact of individual proximate determinants of fertility on seasonal
fertility patterns can be more thoroughly analyzed than in previous
studies. Seasonal data on more distal determinants, such as diet,
workload, spouse absence, and nutritional status, can then be evaluated in
terms of the information on the proximate determinants, shedding light on
possible linking mechanisms and opening avenues for further research.